Array Studies of Central Andean Seismicity and Structure

This collaborative research between Cornell University and Memphis State University is to process data previously collected under NSF-supported PANDA network deployment in the San Juan and Jujuy provinces of Argentina. Over 20,000 earthquakes in San Juan, and over 1000 earthquakes in Jujuy were recorded, producing over 100 GBytes of digital seismic data. The objective of the project is to study crustal and lithospheric structure and seismicity in two contrasting areas of the eastern slopes of the Andean uplift where seismogenic crustal shortening is occurring.